Presidential Young Investigator Award

Research interests are in the development of optical tomographic imaging of breast tissue for cancer detection, the evaluation of non-linear smoothing operators in image restoration, and the application of electrical and thermal modeling techniques to tumor hyperthermia and electrosurgery studies. In the tomographic imaging area, a device has been designed and is being built to collect projection data from a pulsed laser diode source to perform tomographic reconstruction of the imaging cross-section without the use of X-rays. The major application of this work in thermographic imaging is in the use of both the visible and infrared spectra to determine tissue properties during relatively long (2-second) laser pulses.